Floer homology in mirror symmetry and in symplectic topology

Abstract

Award: DMS-0904197
Principal Investigator: Yong-Geun Oh

This project aims at providing a description of Fukaya categories
of toric manifolds and of Calabi-Yau threefolds, and establishing
the mirror correspondence between the Fano toric A-model and the
Landau-Ginzburg B-model based on the general Lagrangian Floer
theory established by the PI jointly with Fukaya, Ohta and
Ono. It also proposes to solve the simpleness problem of the area
preserving homeomorphism group of the two sphere (and the disc)
by investigating the extension problem of Calabi homomorphisms
and Entov-Polterovich's quasi-morphisms to the Hamiltonian
homeomorphism group. In addition, the PI proposes to apply the
machinery of Floer theory to symplectic topology of toric
manifolds and construct new quasi-morphisms on the Hamiltonian
diffeomorphism group and Entov-Polterovich's symplectic
quasi-states on toric manifolds. The PI anticipates that the
proposed research will not only provide solution to the
homological mirror symmetry of Fano toric A-model and
Landau-Ginzburg B-model but also lead to deeper understanding of
open-closed Floer theory and its applications to dynamical
systems and symplectic topology.

The Hamiltonian formalism played a fundamental role not only for
solving problems in classical mechanics but also for transforming
the classical mechanics into quantum mechanics. It also plays an
important role in deriving many basic physical equations in high
energy physics ranging from quantum field theory to modern string
theory. The natural space where the Hamiltonian formalism can be
exercised is the symplectic manifold (or more generally the
Poisson manifold). One of the most distinguished geometric
objects of study in symplectic manifold is the Lagrangian
submanifold; For example, `the state of a particle with zero
momentum in space' forms a Lagrangian submanifold in `all
possible states of a particle in space' which forms a symplectic
manifold. Understanding the interplay between geometry of
Lagrangian submanifolds and dynamics of Hamiltonian flows is the
core theme of symplectic topology. The PI's proposed research
aims at extending the Hamiltonian dynamics to the level of
continuous dynamics and solving various problems arising from
Hamiltonian dynamics and mirror symmetry. It also aims at easing
the access of graduate students and researchers from other
related fields into the study of Floer theory and mirror symmetry
by writing a graduate level textbook on Floer homology and its
applications to symplectic geometry.